SBIR Phase I: Photovoltaic Laser Annealing System

The Small Business Innovation Research (SBIR) Phase I project proposes to achieve recently reported gains in CIGS solar cell efficiency from in-situ laser deposition, by using an ex-situ laser annealing approach that is compatible with an existing pilot manufacturing system. The proposed ex-situ approach will not need to heat the substrate above the 425C value used to manufacture CIGS solar cells on flexible polyimide substrates.

Solar cell technology is an energy alternative that can reduce America's dependence on fossil-fuel-generated electric power. A truly cost effective technology is to build cells using methods whose thermal budgets are low enough to enable the use of inexpensive polymer substrates, which enables large-area roll-to-roll processing and automated cell-to-cell connection techniques. AMBP Tech Corporation will develop and demonstrate a tool to improve solar cell performance that is immediately applicable in the solar-cell manufacturing marketplace.